REU: Student Research on the Naco Valley Archaelogical Project Northwestern Honduras

This award provides funds for a Research Experiences for Undergraduates Site through the Anthropology Department at Kenyon College. The program is designed to provide highly motivated undergraduates, especially women, with the opportunity to develop their skills as archaeological field scientists while working within the context of the Naco Valley Archaeological Project, NW Honduras. The project focuses on student conduct of a significant independent research project, from the enunciation of a hypothesis to final write-up, supported by in-field class instruction and a living and working situation in which interaction among students and research leaders is easy and yet intense. This course of study is founded on the principal investigators considerable experience in collaborating with and instructing undergraduates within field settings in the past and, especially, on an NSF-REU site project which took place during the 1988 Naco Valley season. Ultimately, the goal of the project is to help students grow from neophyte research assistants to junior colleagues confident in their ability to make independent research decisions and contribute to scientific knowledge. The 1988 efforts, which form the model of the current program, were successful in accomplishing these objectives.